Validation and Calibration of Models to Estimate Earthquake Damage to Buildings

This is a SGER project to collect and to study the perishable earthquake and structural response/damage earthquake. This project focuses on the unique opportunity provided to collect data of building damage and to calibrate and validate loss estimation models/buildings and a portfolio of buildings. The study will use 400 Stanford University buildings as a portfolio which cover a broad spectrum of structural and material types. This massive portfolio of old and modern buildings, which collectively suffered a total loss of $160 million offers a superb data base to improve the damage/loss evaluation and estimation techniques. The tasks entailed in this project are: (1) collection of factual damage data of structural and architectural mature, (2) collection of soil dnad geological data of building sites, (3) collection of strong-motion from campus sites, and (4) evaluation of damage and loss and calibration of models used. The results could be representative for many buildings in California and other states and the learning about existing models will be of significant value to many large institutions, corporations and communities.